U.S.-Chile Cooperative Research: Neural Crest Induction in Xenopus

9722460 Bronner-Fraser This Americas Program award will support Dr. Marianne Bronner- Fraser, California Institute of Technology, in a research collaboration with Dr. Roberto Mayor, Universidad de Chile. The investigators plan to study the effect of expression of a newly isolated gene, NP-1, on the initial formation of neural crest cells. The new gene, isolated and sequenced from avian embryos by Dr. Bronner in collaboration with two other researchers, has no obvious similarities to other known gene families. However, although the chick system has many advantages for experimental embryology, it is difficult to ectopically express gene products in birds. Therefore, the researchers have initiated studies of the Xenopus system, which represents an ideal system in which to pursue ectopic expression of molecules in early development. To that effect. they plan to isolate the Xenopus homologue of NP-!. Their research will combine molecular biological approaches with experimental embryology, with the long-term goal to characterize and understand the function of the gene in neural crest formation. The collaboration will benefit greatly from the combined expertise and research intereqt of both researchers. The proposed experiments will take place in Dr. Mayor's laboratory, who is an expert on the Xenopus system and has a long standing interest in neural crest development. . ***